U.S.-Czech Engineering Research on Thick Deposits Produced by Water Stabilization Plasmas

9317415 Herman The primary objective of this U.S.-Czech project between Dr. Herbert Herman of the State University of New York, Stony Brook, and Dr. Pavel Chraska of the Czech Institute of Plasma Physics, Prague, is to examine the processing, structure, and property relationships of net-shapes and deposits manufactured by water stabilized plasma torches. This will be done by comparing water stabilized plasma formed coatings with those manufactured by conventional processes. Specifically, the researchers intend to: 1) Manufacture coatings, net-shapes and composites at high production rates via high production rate plasma spray technology; 2) Optimize the processing technology of water stabilized plasma torches using laser diagnostics; and 3) Characterize the material structure and mechanical properties of net-shapes and composites. Overall, results are expected to improve our understanding of fundamental plasma/particle interactions and particle/substrate interactions. This engineering project in thermal systems fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence. ***